Advancing Segregation Measurement

This project is designed to improve our scientific understanding of residential segregation. Indices of residential segregation are seen as key reflections of social reality, particularly the overall degree of social integration of groups, especially ethnic groups, in society. The approach takes advantage of contemporary statistical methods and multi-level data to generate improved measures of segregation. It also will update these measures to accommodate contemporary social reality. Much of segregation methods remain limited to considering two groups, such as blacks and whites. The newer measures will be able to summarize the residential patterns that exist for an ethnically diverse population, such as the contemporary United States. These methodological advances also will allow us to adjust segregation measures for other aspects of population composition, something beyond the scope of traditional segregation measures.